Mathematical Sciences: Analytical and Algorithmic Studies for Nonlinear Systems of Multiple Subtypes

This research will study nonlinear partial differential equations associated with the semiconductor device system from both an analytical and algorithmic point of view. These equations are of elliptic/hyperbolic or elliptic/parabolic/ hyperbolic subtypes. One part of this research will continue work on a drift-diffusion model and examine issues related to rapidly changing coefficients. A second portion will use the TVD scheme to examine a hydrodynamic model. The models considered in this work should increase understanding of multi-valley semiconductors currently of interest, such as gallium arsenide.